NSF Ship Inspection

Prop #: 0625565
PI: RINGELBERG

Through this contract, JMS Naval Architects, Inc. (JMS) will provide ship inspection services for NSF for the non-Navy vessels in the UNOLS fleet. JMS is a specialty maritime engineering firm with expertise in naval architecture, marine engineering, shipboard operations, salvage engineering, towing and ship husbandry. The Project Director, Jack Ringelberg and the JMS staff, having had considerable experience in performing research ship surveys are fully qualified to provide these services for NSF. This project will provide opportunities to improve the safety, operations and quality of science support aboard the UNOLS ships. ***